17th Annual National EPSCOR Conference, September 2003, Las Vegas

The 2003 EPSCoR National Conference will focus on future opportunities in research and development, strategies to address the current and future challenges to the S&T enterprise, promoting economic growth through research and development partnerships and collaborations, and increasing the participation of underrepresented groups in science, research and education. The conference will be held in Las Vegas, Nevada from September 7-9, 2003. Participants will include representatives from national and state governments, academe and the private sector. The Nevada EPSCoR staff will organize and manage the conference.